REU: Undergraduate Research in the Biological and Physical Sciences

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Eastern Montana College. Students will participate in projects involving ecology.